Collaborative Research: A Reaction Kinetics Database for Modeling Biogeochemical Systems

Understanding how quickly environmental reactions take place is the goal of EarthKin, a
geochemical database focusing on the rates of geochemical reactions. EarthKin
scientists from University of Maine, Penn State, Columbia, and Saint Francis University
will compile existing reaction rates into a one-stop database that will allow access to
researchers working on a diverse range of projects ranging from removing carbon
dioxide from the atmosphere and permanently storing it beneath the ground to cleaning
up contaminated environmental sites. When completed EarthKin will be available to
scientists free via the web at www.earthchem.org. Not only will we compile existing
data, but we will also encourage new researchers to become involved by uploading their
new results into the database.

Recent advances in geoinformatics (the subdiscipline of developing technological
and computation tools to facilitate information dissemination in the geosciences) have
drastically increased access that researchers have to geological information. Many
recent endeavors have focused on online publishing of large data sets in order to make
data available to the wider community. EarthKin is especially interesting in that it is one
of the first attempts to include experimental data in a web-based data management
platform. To do this, we will need to build new tools and data structures that will allow
the existing EarthChem platform to incorporate a new type of data.